Ecological Sustainability and Human Institutions: Phase II US MAB Human-Dominated Systems Directorate Core Project

9528144 Soles This interagency transfer of funds is to support activities of the US Man and the Biosphere Program (MAB) which is part of the world-wide MAB Program. Overall, MAB promotes the study of the interrelationships of the Earth's human and natural systems. MAB has an integrated, interdisciplinary, problem-focused research approach. The mission of the US MAB Program is to foster harmonious relationships between humans and the biosphere through domestic and international cooperation and interdisciplinary research, education, biosphere reserves, and information exchange. A National Committee established in 1974 by the Department of State and composed of representatives from supporting federal agencies and state and private institutions guides the development of the national research, education, and training activities.